CSR: Small: Collaborative: Pursuing High Performance on Clouds and Other Dynamically Heterogeneous Computing Platforms

Emerging technologies have led to revolutionary computing platforms
such as computing clouds and many genres of computing grids. These
platforms promise to make high-performance computing platforms
accessible to the public. Realizing this promise, though, requires
one to cope with the platforms' dynamic heterogeneity, i.e., the fact
that their constituent computers' relative powers and speeds can
change at unpredictable times and in unpredictable ways; for instance,
shared computers may slow down or speed up significantly because of
unpredictable changes in workloads. The research of the PIs is
developing a transformative computing paradigm that will enable
high-performance computing on these platforms. The new paradigm
replaces traditional schedulers' attempts to accommodate the
particulars of a computing platform---a goal that dynamic
heterogeneity confutes---by orchestrating a complex computation in a
way that honors the relevant details of the computation's inherent
structure. In this way, the paradigm increases opportunities for
executing independent tasks in parallel (i.e., simultaneously),
thereby completing computations faster. Preliminary assessments---via
simulated competitions with common computation schedulers---suggest
that the new paradigm often completes computations faster than
competing strategies by double-digit percentages. The challenge is to
realize the paradigm in a computationally efficient manner, and the
PIs are pursuing a variety of avenues toward achieving such
efficiency. Because of the complexity of dynamically heterogeneous
platforms, this goal requires advances in the technology of both
scheduling algorithms and simulation software. The PIs are uniquely
qualified to produce such advances because of their complementary
expertise in algorithms, applications, and systems.